Project Mathematics = Easy as PI

9909566
KRAKAUER

The North Carolina Museum of Life & Science requests $627,003 (54.6% of a total $1,148,397 project budget) to develop "Mathematics=Easy as Pi." This will be a three-year statewide project from the North Carolina Museum of Life and Science on behalf of the 15 member museums of The North Carolina Grassroots Science Museum Collaborative to develop and implement programs and exhibits that will assist families, children and teachers to understand and appreciate mathematics. The components are a public celebration of mathematics name Pi day that will be held in 15 museums on March 14th of each year, teacher professional development workshops, 12 hands-on tabletop exhibits for 13 museums, and a Sharing math guide for use by families and children. This initiative will serve more than 2.7 million young people and adults in North Carolina over the initial three-year project. The materials will have continued usage beyond the project timeframe.